Contingent Weighting in Judgment and Choice

This award provides support for research describing and explaining how people make judgments and choices and in what ways these decision making behaviors are at variance from rational prescriptive theories of decision making. Specifically the objective of this research is to extend the study of preference reversal behavior into real world situations and to develop formal models which describe and explain judgement and choice behavior. Since the early reporting of preference reversal behavior the phenomenon has been shown to operate in many diverse decision making situations. Various competing explanations have been advanced to account for decision making which violate the prescriptions of quantitative theories of decision analysis. This research effort which will extend prior laboratory research into real world situations has the objective of developing more comprehensive process descriptions and explanations of preference reversal behavior as well as to develop formal models of the psychological phenomena of judgement and choice. Such progress is crucial if normative decision models were to serve as a basis to increase the rationality and effectiveness of actual decision making behavior.